FAW: Modeling the Impact of Abiotic and Biotic Transformation Processes on the Subsurface Transport and Fate of Contaminants

The research focus is to be in two specific research areas. These are the modeling of microbial transformations of organic chemicals in the saturated and unsaturated soil zones and the modeling of processes controlling the interphase mass partitioning of contaminants in subsurface systems.